Ergodic Ramsey Theory, Polynomials, and Actions of Nilpotent Groups

ABSTRACT

V. Bergelson and A. Leibman will study multiple recurrence and
convergence in ergodic theory with emphasis on the polynomial aspects of
behavior. The proposers earlier showed that sampling along polynomial times was suffient to reveal deep ergodic phenomina. The problems considered may be viewed
as far reaching extensions of classical results. In addition to demonstrating new properties of dynamical systems, these
problems lead naturally to strong applications of ergodic theory to combinatorics,
number theory and algebra which until now have been inaccessible conventional
methods. The polynomial Szemeredi theorem and the polynomial
Hales-Jewett theorem, obtained by the proposers in recent years, already serve as
an impetus for further developments in the theory of multiple recurrence.
This provides better understanding of
multiple recurrence along polynomials and bring to light new vistas of research. An important feature of the research opened by the
proposers's earlier work is the appearance of nilpotent
nilpotent groups into the picture.

Not only does
this lead to strong applications in combinatorics and number
theory, but the computational flexibility stemming from this theory may be of significance in applications.